Nuclear Physics in the 1990's; Santa Fe, New Mexico; Conference to be Held May 1-5, 1990

This proposal is to support the attendance of about 10 U.S. graduate students at the conference "Nuclear Physics in the 1990's", Sante Fe, New Mexico, May 1-5, 1990. This is an international conference with a strong involvement of Japanese physicists and institutions.